Fifth International Conference on Precipitation, Crete, Greece, June 14-16, 1995

9418612 Foufoula-Georgiou The Fifth International Conference on Precipitation will be held in Crete, Greece in June 14-16, 1995. Following the tradition of the previous four conferences this meeting aims at fostering interdisciplinary interaction between meteorologists, hydrologists, mathematicians and statisticians. The central theme of the conference will be research issues related to the problem of linking stochastic and dynamic of descriptions of rainfall for the purpose of modeling, estimation, and forecasting. In particular, emphasis will be placed on the following topics: (a) precipitation dynamics, (b) space-time variability and statistical characterization, (c) linkages between dynamics and stochastic descriptions, and (d) applications of physical and/or statistical theories in the development of rainfall estimation/retrieval algorithms